Theory for Dynamical Phenomena in Quantum Degenerate Gases

Four broad topics will be investigated. First, a theory is being developed for transient phenomena in a degenerate Fermi gas that ensue when the magnetic field is swept across a Feshbach resonance. Second, corresponding studies in Bose systems will be revisited as there appears to be a qualitative element still missing in the comparison between theory and experiments. Third, an analytic theory of the superfluid-insulator transition for bosons in an optical lattice will be constructed. Fourth, Bragg scattering of light from atoms, bosons and fermions, in an optical lattice will be undertaken.